Microbial Observatories: Eukaryotic Microbial Communities of the Old Woman Creek National Estuarine Research Reserve

A grant has been awarded to Drs. Peter Lavrentyev and Robert Duff of the University of
Akron to examine taxonomic composition of planktonic protists in relation to their key functions
at the NOAA Old Woman Creek National Estuarine Research Reserve (OWC NERR). Samples
will be collected from four stations along the stream-Lake Erie transect at monthly intervals in
conjunction with the ongoing long-term monitoring. Microbial community structure,
distribution, and dynamics will be examined under different hydrologic and climatic conditions
using molecular, digital video, flow-cytometry, and microscopic methods. This study will
generate a library of protistan images and ribosomal DNA sequences which will contribute novel
taxonomic and ecological data to the scientific community and publicly accessible databases.
The taxonomic survey will be supplemented by field experiments, which will examine the effect
of differences in microbial community composition on two functional aspects of the community:
growth and grazing.
Protists (unicellular eukaryotic microorganisms) play an important role in aquatic ecosystems
by regulating bacterial and primary production and regenerating the bulk of inorganic nutrients
but the relationship between their diversity and functions remains poorly understood. This study
will increase our knowledge of microbial life in critical estuarine/coastal wetland environments
and improve our ability to predict complex and dynamic microbial processes in the Great Lakes
and the coastal ocean. On a yet broader scale, the study will provide new insights about the
relationship between biodiversity and function in natural communities. Finally, this study will
have an impact on the infrastructure of education within the PIs institutions and beyond.
Students at UA and FIU involved in the project will experience a wide range of professional
activities and will be involved in all aspects of the research enterprise. In addition, this project
will provide information for the OWC NERR visitor center exhibit and thus contribute to the
general public understanding of the importance of preserving biodiversity and estuarine/wetland
environments. The results of this study will be invaluable in informing decisions on conservation
and environmental management these important habitats that have become increasing threatened.